International Travel Grant to Attend the Third International Symposium on High Pressure Chemical Engineering, Zurich, Switzerland, October 7-9, 1996

ABSTRACT CTS-9615397 Award of $752 to cover round-trip airfare between Kansas City and Zurich for Dr. Bala Subramaniam is recommended. Dr. Subramaniam will be presenting a paper on catalysis in supercritical media at the Third International Symposium on High Pressure Chemical Engineering on October 7. This paper is based on work initiated in this program and later supported by EPSCoR. This effort is now being supported in the joint NSF/EPA program on Technology for a Sustainable Environment.